Topology of Nonisolated Singularities and Scale-based Geometry

DMS-0103862
James N. Damon

Professor Damon's research will apply infinitesimal and
stratification methods from singularity theory to investigate
the topology and deformation properties of a general class of
highly nonisolated singular spaces. These spaces arise as
nonlinear sections of certain natural universal varieties.
For instance, geometric and deformation properties of mappings
under various equivalences can be captured by such universal
varieties. The structure of the tangent vector fields will be
used to deduce algebraic formulae for certain fundamental
topological invariants. These will be given in terms of
certain natural algebraic and geometric multiplicities,
measuring the singular behavior of mappings relative to
associated geometric structures such as foliations Second,
he will refine these ideas for questions in computer imaging
by developing geometric structures associated to objects and
features in images in terms of such highly singular spaces.
The presence of discreteness, noise, and distortions in images
require a "scale-based geometry" which is applicable to nondifferentiable functions, measures, and even distributions.
Such a geometry will apply to "almost all" objects in a given
type, and will yield stable geometric structures in scale space.
This will allow the geometric analysis of images using functions
and measures discriminating various features in images.

The first part of Professor Damon's research will determine
for specific types of systems of nonlinear equations, the
qualitative properties of the set of solutions. These can be
obtained from certain universal systems of equations. He
proposes to use certain infinitesimal symmetries of the
equations to deduce properties of the set of solutions
in terms of algebraic invariants which reflect both properties
of the universal equations and how the specific equations
relate to the universal ones. Second, the research will be
applied to problems in computer imaging. To objects and
features in images, one may associate geometric structures
capturing their properties for various imaging purposes.
Such structures are defined using systems of equations as
above. The presence of discreteness, noise and distortions
in images interferes with identifying geometric features.
The research will refine the methods described above via
"scale-based" versions which introduce robust geometric
structures overcoming these difficulties, which can then be
used for a variety of computer imaging problems.